Robust Multiple Drug Infusion Control

This is a proposal to continue the development of robust systems for automated drug delivery. The emphasis is on combining technology used in chemical industry to control multiple outputs by multiple inputs with expert systems methodology that assesses patient state and selects initial drug infusion rate. The project depends heavily on cross-disciplinary interaction of team members with expertise in anesthesiology, biomedical engineering, and control engineering. The project has the promise of advancing the technology of controlling biological systems, and it may also eventually contribute to improved management of anesthesia.